Mathematical Models in the Natural and Social Sciences

9552944 Williams Florida A&M University will initiate a 6-week, summer residential, Young Scholars project in mathematics and multi-disciplinary science for 30 high potential students entering the 11th and 12th grades. The students will be engaged in classroom discussions, hands-on laboratory activities in science and mathematics, field trips, and research under the guidance and mentoring of Florida A&M University professors.